Chemical Physics of Model Two-Dimensional Systems

In this project in the Experimental Physical Chemistry Program, George Ewing of Indiana University, Bloomington, will study the spectroscopy, dynamics, and reactivities of diatomic and polyatomic molecules adsorbed on ionic insulator surfaces. Infrared spectroscopic techniques will be used to explore molecular structures and motions, energy transfer mechanisms between the adlayer and the substrate, and bonding within the adlayer and between the adlayer and substrate. Using pulsed ultraviolet laser excitation, photochemical reactions on the surface will be initiated and monitored by fluorescence. Systems to be investigated include hydrogen, sulfur dioxide, and methane on lithium fluoride, sodium chloride, and potassium bromide. A major objective of this research is to influence current theoretical models of monolayer photochemistry and energy transfer, and to observe and understand chemical reactions which are unique to surface environments. Surfaces can influence chemical reactions in a variety of ways, including energy transfer to or from the surface, changing the strength of chemical bonds, and altering the energetics of chemical reactions. Professor Ewing's work will clarify some of the issues involving energetics and chemical reactions on relatively inert substrates such as sodium chloride and potassium bromide. The study of these systems will also contribute to our theoretical understanding of more complex systems.